An Undergraduate Artificial Intelligence Teaching Labora- tory.

This project will enhance the artificial intelligence (AI) program at Taylor University in two ways. It will provide sufficient IBM PC/AT computing resources to support the teaching of Lisp, processing text, developing image processing programs and the teaching of expert systems. It will also make possible, through the acquisition of a TI Business Pro computer, student learning of speech processing.